Model Based Design of Central Nervous System Neural Prosthetic Interfaces

9709488 Grill Neural prostheses are a developing technology that use small electrical currents to activate the nervous system and restore lost function to individuals with neurological impairment. Electrical activation of intact nerve cells, in the form of a neural prosthesis, is presently the only method available to restore function to individuals with spinal cord injury. The long-term goal of the principal investigator's research program is to develop advanced neural prostheses based on electrical stimulation of the spinal cord. The novel approach being pursued is to activate electrically the intact neural control circuits of the spinal cord to generate distributed commands to groups of last-order neurons. There is abundant evidence in animals, and increasing evidence in humans, that the neuronal control circuitry of the isolated spinal cord is capable of generating complex movements with coordinated muscle activity including reaching, locomotion, scratching, and micturition. Exploiting these intact neuronal control circuits would significantly improve the function of and simplify the implementation of neural prostheses. One fundamental requirement to implement a neural prosthesis using microstimulation of the spinal cord is the ability to generate selective and controlled electrical activation of specific groups of neurons. The outcome of the proposed research will be new techniques to effect selective excitation of targeted neurons. Two fundamental questions will be answered using a combination of experimental measurements, computer-based modeling, and engineering optimization. First, what neural elements are activated by stimulation of the spinal cord with penetrating microelectrodes? Second, how can targeted populations of neurons be selectively stimulated? The techniques and knowledge which result from this research will find application in fundamental studies in neurophysiology and in design of advanced neural prostheses utilizing microstimulat ion for restoration of function in individuals with neurological impairment. ***